Efficient Monoclonal Antibody Production

The long range objective of this program is to develop mass culture procedures that can be readily applied to improve the efficiency of producing monoclonal antibodies (MAb's). This proposal focuses on using engineering approaches to describe cells at the metabolic level so that the ways they utilize energy to proliferate and produce MAb's can be better understood and utilized to gain effective control. In Phase I, reactor systems will be tested to compare their performances, and they will be characterized with respect to their mass transfer coefficients, cell densities, and MAb production rates. In Phase II, attention will be directed to more fundamental aspects such as the mathematical modeling of cellular growth and metabolism. Essential to this effort will be representation of complex biological nonlinearities within a structured mathematical formalism. Using these mathematical formulas, models of cellular subsystems will be developed and then integrated to give the cell growth model and MAb production kinetics. The kinetic information will then be incorporated into a reactor model to determine the most effective production strategies and control methods. This grant application is an excellent example of the type of crossdisciplinary proposal we wish to see in the Engineering Directorate's Biotechnology Program. It was rated very good by the cross-disciplinary Panel reviewing this proposal and the Principal Investigators are considered well qualified to carry out the proposed research. I recommend funding of this proposal for three years in accordance with the revised budget.